Environmentally-Assisted Fatigue Crack Growth in Concrete

The proposed program will develop a multiparameter probabilistic fracture
mechanics and finite element framework for the prediction of fatigue crack
growth in a selected grade of concrete. Fatigue crack growth experiments
will be used to establish a fracture mechanics framework for the prediction
of fatigue crack growth in concrete as a function of multiple mechanical
driving forces. The results will be synthesized into a single multiparameter
equation using multiple linear regression techniques. The Principal
Investigators will also use funds from the proposed program to continue
their outreach and teaching programs to minority engineering students,
initiated with NSF support over the past few years. At the graduate level, a
new college-wide course will be introduced on Probabilistic Engineering
Methods for the Analysis of Failure using examples from the Principal
Investigators' prior work on fatigue, fracture, creep, and wear of structral
materials. The proposed program will, therefore, contribute significantly to
teaching and research in the area of engineering mechanics and materials.
Furthermore, it willl establish a new methodolgy for the combined assessment
of the effects of multiple parameters on fatigue crack growth in concrete.
The resulting single multiparameter equation could form the basis for the
development of a fracture-mechanics based approach for the prediction of
fatigue crack growth in concrete structures. It could also establish a
framework for future research on the effects of concrete chemistry and
microstructure on fatigue crack growth. This could result ultimately in the
design of concrete compositons and microstructures with better fatigue crack
growth resistance than existing grades of concrete. The optimization of
concrete composition and microstructure could also lead eventually to lower
life cycle costs and improved durability of concrete structures and
infrastructure.